Research Experiences for Undergraduates at the University of Alabama

Dr. Lowell D. Kispert and other members of the Chemistry Department of University of Alabama are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, twelve undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the primary focus is on students from small colleges including minority institutions east of the Mississippi that do not have facilities to carry out research.